Partial Support of the 1995 Cambridge Symposium/Workshop on the Physics of Space Plasmas; Bermuda

The PI will utilize funds for the 1995 Cambridge Symposium/Workshop on the Physics of Space Plasmas, this year's theme of which will be multiscale phenomena of space plasmas. Funds will cover related expenses for graduate students, recent doctoral recipients and visitors, assuring that the upcoming generation of space physicists and qualified scientists will be well versed in this vital area of space physics.